Current Trends in Harmonic Analysis and its Applications: Wavelets and Frames

This is a proposal to support a conference on Harmonic Analysis and its Applications: Wavelets and Frames. The topic is current and the proposed conference hasprominent speakers who are active contributors in this area.